Research Experiences for Undergraduates in Chemistry at the University of New Mexico

Dr. Lorraine Deck and other members of the Chemistry Department at the University of New Mexico are being supported to continue a Research Experiences for Undergraduates (REU) site in chemistry. For the period 1996-98, ten undergraduate students will spend ten weeks each summer actively engaged in basic research projects drawn from the traditional areas of chemistry and biochemistry. The site encourages participants from small institutions in the southwestern United States, particularly minority students from the Native American and Hispanic communities.